Collaborative Research: Nonlinear Nonlocal First Order Hyperbolic Problems in Population Models

The investigators consider a general system of nonlinear
nonlocal hyperbolic equations describing the dynamics of several
interacting populations. The goal of the project is to develop
theories on the existence-uniqueness, long-time behavior, and
numerical approximation of solutions to the hyperbolic system. A
combination of analytical and numerical methods is used to
understand the dynamics of the complex proposed model. To study
existence and uniqueness of solutions to this system, two major
approaches are adopted. The first approach to study the
well-posedness of solutions is via the finite difference method
used for classical conservation laws. The second approach to
investigate the well-posedness and long-time behavior of
solutions is based on the monotone approximation and comparison
results that have been successfully established for the
semilinear case by the investigators. Although similar approaches
have been used in studying other nonlinear partial differential
equation models, their applications to special cases of the
general nonlinear and nonlocal model considered in this project
have only been carried out by the investigators. In addition, a
numerical methodology is developed for an inverse problem
governed by the proposed nonlinear nonlocal system of equations.
It uses a connection between real data and the model to estimate
unknown parameters. Meanwhile, a numerical package is developed
for simulating the proposed model.
Many populations and their interactions with the environment
have been modeled using the structured population approach, where
the structures of interest are induced by internal
characteristics such as age or size. For example, size-structured
population models with distributed rates have been successfully
used to describe the dynamics of mosquitofish in California rice
fields. The structured population approach has also been used to
model the dynamics of hierarchically structured populations in
which the differences between individuals have a direct effect on
the availability of resources. Another application is the
predator-prey interaction between zooplankton and phytoplankton
within the context of algal aggregation. Generally speaking, in
order to analyze, manage, and control the dynamics of a
population, it is necessary to understand the interactions
between the population evolution and its environment. In this
project, the investigators study a general structured population
model. Due to its complexity, a combination of analytical and
numerical methods is developed to investigate the dynamics of
such a population. In particular, a numerical package to simulate
the proposed model is provided. Furthermore, certain techniques
are introduced to estimate the growth and mortality for
individuals within the population from field data. Because of the
generality of the proposed model, the results help to answer
questions about nonlinear phenomena in population dynamics. In
addition, the resulting numerical method can be used by
population biologists to investigate the dynamical behavior of
general population models.